Operation of the WOCE Hydrographic Program Office at UCSD/SIO

0117767 Swift

This project will complete the data assembly, verification, adjustments, examination by data quality experts, documentation, availability and archive of hydrographic and tracers data collected by the World Ocean Circulation Experiment (WOCE) Hydrographic Program (WHP). As the WOCE program winds down at the end of 2002, the WHP Office will complete the clean-up of the repeat Hydrography data set, prepare the WHP contents for the final WOCE CD-ROM (version 3) and will transition the activities of the office to optimally the anticipated needs of the Climate Variability and predictability (CLIVAR) program as it ramps up its re-survey activities. The WHP office enables discovery and understanding by making the high-quality WOCE data set freely available together with the appropriate documentation and tools that also facilitates teaching. This activity not only supports the WOCE community but also enables research and teaching more broadly across many areas of physical oceanography, the application of oceanographic knowledge to climate issues and its application in biological issues. It enables research and teaching across the full spectrum of US institutions and also internationally.